Introducing Indivisibles into Calculus Instruction

The PI's Bronislaw Czarnocha and Vrunda Prabhu, will conduct two year-long cycles of
teaching experiments to introduce the intuition of "indivisibles" into calculus instruction and
integrate it with standard ways of instructing via Riemann construction. They plan to study
closely the conceptual and computational development of students who receive this instruction. It
As part of this project, the PI's will investigate:
(1) What is the process of transformation and development of the intuition of lines (the
indivisibles) into a precise, mathematical concept?
(2) Does the introduction of the W-C construction based on indivisibles, the interplay of that
construction with the standard Riemann construction, and the instruction that integrates both,
strengthen students' understanding of the concept of the definite integral?
In the proposed project, they will conduct and coordinate Calculus instruction at six
institutions, assess students' performance via tests, essays and clinical interviews, collect data
resulting from the different assessment and analyze the data in preparation for a refinement of the
teaching strategy. As a general framework they will adopt Vygotsky's theory with its emphasis
on the cognitive processes in the zone of proximal development, which dictates important
consequences on the instruction and assessment. Students will be guided by the activities of the
class to enable them to experience the process of mathematical thinking and to reveal its content
to the teacher. The role of the instructor will be to provide systematization of their spontaneous
development grounded in the precise mathematical understanding of the concept in question. The
directions their spontaneous thought processes take, will be under investigation during the course.

The project is a balance between various aspects: (1) the natural intuition of the learner vs.
the academic instruction, (2) computational mastery vs. conceptual understanding, (3) teaching
and research.